An Interdisciplinary Robotics, Computer Vision, and Automated Manufacturing Undergraduate Laboratory

An undergraduate laboratory for robotics, computer-vision and automated manufacturing is established. The laboratory will serve senior-level undergraduate students in electrical engineering, computer science and mechanical engineering. The laboratory will provide practical experience for reinforcing the scientific and engineering principles learned in an undergraduate lecture courses in robots and manufacturing. The laboratory will consist of five experimental setups in a room of 900 sq. ft. Each setup contains a desk-top robot arm, a desk-top computer, and a computer-vision system. Additionally, an automated milling machine is available. Each student will perform experiments with the robot arm and the milling machine. The student will be required to develop software to control the robot to perform various tasks with the aid of vision feedback, to measure robot characteristics, and to demonstrate principles learned in the lecture classes. Each student will program and translate a CAM program to cause the milling machine to manufacture an object.